Homological Questions in Commutative Algebra

ROBERTS
DMS 98-02235

The aim of this project is to study Serre's Positivity
Conjecture for intersection multiplicities. This conjecture
concerns the intersection multiplicity of two finitely
generated modules over a regular local ring which have the
property that their supports intersect only at the maximal
ideal of the ring. It states that the multiplicity is positive
if and only if the sum of the dimensions of the supports is equal
to the dimension of the ring. Recently new developments in
the theory of resolution of singularities in mixed characteristic
have led to a new approach to this problem, and these ideas have been
used to show that intersection multiplicities are always
nonnegative. This proposal outlines an approach to
the positivity conjecture using these methods.

The question of how to define intersection multiplicities in
a satisfactory way has been an important topic in Commutative
Algebra for many years. The basic idea is to measure of the extent
two which two subspaces of a space are tangent to each other, and the
definition should satisfy various conditions to ensure that it
agrees with usual definitions in simple cases and that it can
be used in computations. A little over thirty years ago Serre
proposed an algebraic definition which satisfied many of the
required properties but which involved negative terms. There
were several questions left open concerning when the intersection
multiplicities are zero (vanishing), whether they are always
greater than or equal to zero (nonnegativity), and the
precise conditions for them to be strictly greater than zero
(positivity). Since then the vanishing and, more recently, the
nonnegativity conjectures have been proven. This proposal
concerns a study of the positivity conjecture using new methods
from Algebraic Geometry.